Lattice QCD studies of the spectrum and structure of hadron excitations

A Project summary
The physics of hadron excitations, such as the N* resonances, hybrid mesons and baryons
in which the valence quarks are bound by an excited gluon ﬁeld, glueballs, doubly-charmed
baryons, and the recently-discovered pentaquark systems, will be studied using computer simulations
of quarks and gluons on a space-time lattice. Such systems should provide a wealth of
information to help us understand the physics of conﬁnement and hadron formation in quantum
chromodynamics, the theory of the strong interactions and one of the fundamental forces of
Nature. These states are also currently of great interest to experimentalists, exempliﬁed by the
Hall B N* program and the GlueX experiment in the proposed Hall D at the Thomas Jeﬀerson
National Accelerator Facility, as well as the CLEO-c project at Cornell. Understanding the
physics of conﬁning gluons is an important intellectual challenge; in fact, it is one of the seven
so-called Millenium Prize problems announced by the Clay Mathematics Institute of Cambridge,
Massachusetts.
One of the most reliable means of investigating such systems is using computer simulations
of quarks and gluons on a space-time lattice. Until recently, these states were diﬃcult to simulate
and hence, received little attention. Advances in lattice simulation technology (the use of
better gauge and fermion actions on anisotropic lattices, the application of variational techniques
with large correlation matrices, constrained curve ﬁtting using Bayesian priors) and computing
technology (clusters, dramatically faster processors) make it possible not only to determine the
spectra of such excitations, but also to probe their internal structures for the ﬁrst time. Commodity
computing clusters at Carnegie Mellon University, the University of Maryland at College
Park, the University of California at San Diego, and Jeﬀerson Laboratory will be used to carry
out these simulations.
A major objective of this proposal is to calculate the mass spectrum of light-quark hybrid
mesons and baryons, the N* excitations, doubly-charmed baryons, and pentaquark states using
Monte Carlo methods with large sets of well-designed operators. Another key goal is to study the
excitation spectrum and structures of the stationary states of gluons in the presence of a static
quark-antiquark pair and three static quarks. The proposal also includes plans to determine the
spatial sizes and internal structures of the low-lying pure-gauge glueballs, and to test various
models of conﬁnement using the glueball spectrum.
The proposed research incorporates the participation of three graduate students, and possibly
one or more undergraduate students, whose educations will be enhanced not only by involvement
in scientiﬁc projects at the forefront of nuclear theory, but also with high-technology
training in the use of state-of-the-art parallel computing resources. The broader impacts of the
proposed activities will be strengthened by posting results with simpliﬁed background information
on publicly accessible web pages.